CAREER: Cooperative Control Under Communication Constraints

CAREER: Cooperative Control Under Communication Constraints
Summary Statement
Intellectual Merit: The fields of cooperative and networked control are on the verge of a technological
revolution. Emerging applications in national security, transportation, communication, and
commerce require distributed networks to be capable of multi-user communication, collaborative
signal and information processing, sensor fusion of multi-modal data, and, distributed computation,
actuation, and control.
These information rich applications place specific demands upon networks: the networks must
scale gracefully to a large numbers of agents; the agents may be geographically distributed, often
requiring communication over noisy, bandwidth-limited channels; the networks may consist of heterogeneous
components, including embedded systems with limited computational power; and, the
networks architecture may be decentralized, requiring local coordination amongst the agents.
There has been quite a bit of recent activity in exploring graph-based, multi-agent cooperative
control. In this proposal the PI will examine how the addition of realistic communication channels,
with noise and delay, can effect the cooperative control performance. For noisy channel situations
it is no longer reasonable to assume that each agent has perfect knowledge of its neighbors states.
We will examine the question of local versus global knowledge. This project will build on the PIs
extensive research on control with communication constraints, graphical models, and information
theory. In systems with large numbers of weakly coupled agents statistical mechanics tools, like
mean-field approximation, can be used to determine the qualitative behavior of the system. If
there is stronger coupling between agents then there is the possibility of multiple phases in these
engineered systems.
Our main objectives in carrying out this research are: (1) Fundamental limits and tradeoffs.
This aspect of the project considers the qualitative scaling behavior of large cooperative control
systems. In addition, the PI will consider the fundamental limits and tradeoeffs between the quality
of the communication and the resulting control performance. (2)Algorithm development. The
proposed research will develop reinforcement learning techniques for solving large factored Markov
decision problems. (3) Educational development.
Broader Impact: In order to develop a useful theory that can explain the advancements in
cooperative control one needs to view communication and control as two sides of a coin. On the
one hand Shannon theory tell us what can be communicated and on the other hand control theory
theory tell us what should be communicated. Tools from information theory, graphical models,
probability theory, and statistical mechanics will be used to develop a formal framework for treating
stochastic cooperative control problems. This framework will allow us to realistically model the
communication between agents and allow us to understand the interaction between information
and control.
The proposed research project blends tools from many disciplines. The PI plans to encourage
undergraduates, graduate students, and practicing engineers to contribute to this interdisciplinary
research program. Course curriculum, talks, and projects will be designed to encourage this participation.
To promote a unified view of the theory and algorithms under development and to provide a
testbed for the evaluation of ideas we will focus on the following driving applications: distributed
estimation and actuation in sensor networks, distributed optimization, multi-agent decision making,
message-passing algorithms, and multi-user information theory. Undergraduate and graduate
students will be called on to perform various experiments and simulations to validate the algorithms.